Ninth International Conference on Ultra-Relativistic Nucleus-Nucleus Collisions; Gatlinburg, TN; November 11-15, 1991

This award provides participant support for the Ninth International Conference on Ultra-Relativistic Nucleus-Nucleus Collisions; Gatlinburg, TN Nov. 11-15, 1991. This conference will provide the world's major forum for the latest research results in the forefront field of relativistic heavy-ion collisions and the search for quark-gluon plasma. There will be about 300 participants from all over the world.